Thermal Analysis in the Polymers and Coatings Laboratory

This project will equip the polymers and coatings laboratory with instrumentation for modern thermal analysis. The Chemistry Department has developed a new undergraduate polymers and coatings concentration in the chemistry major, including two new polymer laboratory courses and several new lecture courses. The instrumentation will be used routinely by all students in the concentration to characterize the polymers they synthesize, perform testing on these polymers, and conduct research on new polymeric materials. This instrumentation will also be used by advanced undergraduates from the Materials Engineering Department in several materials testing and analysis laboratory courses and in undergraduate research. A combination of differential scanning calorimetry (DSC) and thermal mechanical analysis (TMA) will be used so that all types of polymers and coatings can be investigated.